Multi-HBCU Calculus Project

Four HBCUs are working together to revise their calculus curriculum. A problem solving approach is being implemented that encourages experimentation and enhances the study of calculus by minority students. The primary technical tool is the microcomputer running the computer algebra system Derive.